Other Worlds! Other Beings?--A nationally touring exhibition concerning the solar system and the search for life beyond the solar system

9626952 Schatz The Pacific Science Center will develop a 7000 sq. ft. traveling exhibit "Other Worlds! Other Beings"? Concerned that the general public is largely uninformed about the results of the years of basic science research carried out by U.S. scientists, this exhibit will provide an opportunity for visitors to learn about the results of this research and increase their own understanding of the earth and the solar system in general. The exhibit will introduce visitors to the planets, their environmental characteristics, potential and unlikely probability for life to exist on other planets and the processes involved in astronomical research. In addition to the exhibit, they will develop a planetarium program, materials for use by teachers and students, various workshops and other programs for teachers and community leaders, and a full marketing package for participating museums. The exhibit will travel to a minimum of nine museums during its three year tour after opening at the Pacific Science Center in December, 1997.